The Conservative Resistance in Scientific Revolution

"How many times does the apple have to fall?" This question was raised by then Representative Bowman who wanted to know why NSF needed to support a new biography of Newton given the many that already existed. The question assumes that history is a static discipline--that history is simply a gathering of all the "facts" to be set on the page in chronological order. But the historian is like the scientist--they continually seek to refine and improve upon our understanding of events. They offer new theories and gather new evidence to support them. Eddington, for example, sought new evidence in the bending of light from star during a solar eclipse to establish Einstein's theory of gravity over Newton's. Similarly, historians turn to new kinds of evidence in order to establish new interpretations of how and why historical events came about. This move to re-examine and re-interpret events has hit at what had long been thought to be firmly established within the history of science: the Scientific Revolution. The Scientific Revolution of the 17th Century involved the overthrow of the Aristotelian world system and its replacement by "modern science." The revolution began with Copernicus and ended with Newton and his theory of universal gravitation. Yet recent historical scholarship has established that the success of Copernicanism around the turn of the 17th century was quite problematic and not explainable on any merely "rational" grounds. Indeed, the Tychonic system, with the planets circling the sun, the sun circling the immobile earth, made better sense than Copernicanism which so radically contradicted our common-sense understanding of the physical laws of motion. But by mid-17th century, historians and philosophers had assumed that Aristotelianism was defeated and the triumph of modern physics was clear. Yet, Professors Ariew and Garber have found that even this victory was nearly as problematic as the victory of Copernicanism. They are examining the exact process of rejection of Aristotelian natural philosophy during the early to mid-17th century. Paris was then home to a lively and independent intellectual community that included many of the figures most responsible for the rise of the new mechanical philosophy, while at the same time, the University of Paris and numerous smaller colleges were strongholds of traditional Aristotelian thought. Their project involves studying intellectual currents both inside and outside the University, including published books, lecture notes, letters, pamphlets, broadsides, and engravings. They hope to illuminate how, with specifics and in detail, the Aristotelian natural philosophy of the schools was set aside and modern science emerged. The results of the project should enhance our understanding of the complex relations among various scientific, philosophical and theological doctrines, the intellectual context of early modern science, and the status of scientific claims to authority.